Comprehensive Regional Science Center for Minorities

The proposed Center will operate as a non.profit organization, the University of Texas at San Antonio/Alliance for Education, involving UTSA as the lead institution, together with UT-Pan American, St. Mary's, Southwest Research Institute, several corporate and community organizations, and 63 public school districts (73% Hispanic) in 12 counties. An Elementary School Motivational Project, a Student Information Bank, Science Academies, Curriculum Workshops, Parent Outreach, and an Information Clearing House are among the activities conducted. The five program methodology components of the Center are the Student Science Institute, Faculty Development, Community Outreach, the Resource Center, and Evaluation, Research, and Development.